Defining and Advancing the Conceptual Basis of Biological Science for the 21st Century

The Board on Life Sciences of The National Academies will convene an ad hoc committee to identify and examine the biological concepts and theories that have formed the foundation for scientific advancement in the past in the biological sciences. It will assess which areas are "theory-rich" and which areas need stronger conceptual foundations for substantial advancement, and make recommendations as to the best ways to encourage creative, dynamic and innovative research in biology. The study will focus on basic biology, and not on biomedical applications. The committee plans to produce a report within 14 months from the start of the award. The report could serve as a roadmap for future biology research by outlining areas that needs tronger foundations and suggesting ways to bring about advances in biology. The report will also provide an accessible review of the role of concepts and theories in past biological research, which will be suitable for use by students, decision makers and the general public.